Three Workshops in Data Analysis and Mining

Theoretical and algorithmic approaches to data analysis have played a
central role in the development of modern methods for handling data.
The massive amounts of data gathered in important present-day
applications ranging from the Internet to homeland security to
astronomy and medicine have dramatically changed the requirements for
algorithms and provide ample motivation for a great deal of new
theoretical development. Traditional data analysis tools are incapable
of handling the sheer size and complexity of these gigantic data sets.

The project will run three workshops on topics related to the size and
complexity of modern data sets:

"Data Quality, Data Cleaning and Treatment of Noisy Data"

"Compact Representation of Data"

"Geographical Information Systems: Terrain Representation and
Analysis Algorithms"

Intellectual Merit:

The Data Quality workshop seeks to bring together experts from
different research disciplines to initiate a comprehensive technical
discussion on data quality, data cleaning and treatment of noisy data.
The objectives of the workshop are to develop quantitative ways of
measuring the quality of data and to search for an integrated,
domain-independent approach to data cleaning in the situation where
the sheer size of data collections prevents one from manually
scrubbing or even monitoring them.

The central topic of the Compact Representation workshop revolves
around the following question: Can a large and potentially complicated
data set be replaced by a short sketch such that a certain class of
queries on the original data can be answered (perhaps approximately)
by performing computations on the short sketch? The workshop will
explore metric embeddings of sampling spaces with complex structure
into spaces that are amenable to simpler analysis; space-time
tradeoffs for data structures; and algorithms for analysis of data in
the streaming model.

Geographical Information Systems (GIS) are called on to store,
combine, display, and analyze disparate types of spatially-referenced
data---locations of telephone poles, streets, rivers, mountains,
buildings, soil layers, pollution levels, voting districts---for
applications ranging from natural resource management to urban
planning. The goal of the proposed workshop is to address the
challenges in modern GIS by focusing on algorithmic issues encountered
in such systems.

The workshops will identify areas for research and focus on future
research challenges.

Broader Impact:

All workshops will seek a broad impact through a mix of theoretical
researchers and practitioners and by helping to stimulate
interdisciplinary collaborations. Theoretical progress on the research
topics in these workshops will have impact on a wide variety of areas
such as health care, homeland security, environmental management,
disaster management, marketing, bioinformatics, psychology, sociology,
chemometrics, astronomy, and credit card fraud detection.

A major theme of the project is integration of research and
education. It is addressed through participation of graduate students
in the workshops, interaction between students and DIMACS visitors
working in related areas, and tutorial programs organized in each
workshop.